Stochastic Nonlinear Dynamics: Many Degrees of Freedom Far from Equilibrium (Physics)

It is proposed to study the stationary and dynamic properties of far-from-equilibrium nonlinear stochastic dynamics systems. It is intended to elucidate the methematical structure of these complex systems while studying specific physical problems in fluid dynamics, non equilibrium statistical physics and quantum field theory. Reaction diffusion equations for the kinetic and stationary states of chemical reactions will be treated microscopically. Finite dimensional models will be investigated starting from their infinite dimensional hydrodynamic formulation.